Engineering RET

This award provides funding for a three year standard award to support a Research Experiences for Teachers (RET) Site Program at the University of South Florida entitled, "Engineering RET." The program will provide each year of the program, a five week summer research experience for seven middle school teachers, six high school teachers, seven pre-service teachers, and two community college faculty from three Florida school districts.